Computing Environments for Mathematical Sciences Research

The Department of Mathematical and Computer Sciences at the
Colorado School of Mines will purchase computer equipment which
will be dedicated to the support of research in the mathematical
sciences. The equipment will be used for several research projects,
including in particular: heterogeneity in genetic mapping data, numerical
solution of Lyapunov exponents, spin systems, and phase transitions,
development of symbolic software for nonlinear partial differential
equations and differential-difference equations, orthogonal spline
collocation, and spherical spectrum estimates.